Mathematical Sciences: Presidential Young Investigator Award

The primary focus of the mathematical research of this Presidential Young Investigator will be on partial differential equations arising from geometrical problems. The equations are typically nonlinear of elliptic and parabolic type. One class of problems involves what is known as curve shortening. The question is one of describing the long time behavior of a family of plane curves which evolve so that their normal velocity coincides with their curvature. More complicated situations arise when the normal velocity depends in a general way on the curvature and time; the latter case occurring in models of phase transitions in two dimensions. The solution to a curve shortening problem has been shown to develop singularities (blow-up) under certain circumstances. The asymptotic shape of the (suitably rescaled) singular part does not depend on the initial data. Numerical simulations suggest that the actual blow-up rate of the curvature is a function of the iterated logarithm of time. Work will be done in determining if this observation is true and in seeking the mechanism responsible for the log-term in the estimate. Work will also be done in determining periodic orbits with prescribed energy of Hamiltonian systems on cotangent bundles of smooth compact surfaces. The Hamiltonian is assumed to be convex and even on each fibre. A particular goal of the work is to establish the existence of periodic orbits on energy surfaces whose projections on the manifold intersect the projection of a given periodic orbit a prescribed number of times. Such a result may be regarded as a global analog of the Poincare-Birkhoff theorem. Related work will study the linking of parts of solutions of Hamiltonian systems in two dimensions. Estimating linking numbers can be viewed as analogous to measuring the number of roots of a scalar parabolic partial differential equation.